REU Site: Research Experiences for Undergraduates in Model-based Reasoning in STEM Education at the Rochester Institute of Technology

The REU Site award to the Rochester Institute of Technology (RIT) will support the training of ten students for ten weeks during the summers of 2018-2020. The goal of this site is to give students an opportunity to engage in research projects on model-based reasoning. Modeling is an important practice of science as models provide bridges between ideas and observations of the physical world. Models are simplified versions of real-world systems that allow scientists to ask new questions, test new hypotheses, and communicate explanations to a broad audience. Major STEM education reform initiatives in K-12 and higher education support opportunities for students to engage in the practice of modeling throughout the STEM curriculum. These reform initiatives must also be supported by a research base that includes well-defined goals, assessment tools, an understanding of common student difficulties, and effective curricular approaches. The Research Experiences for Undergraduates (REU) Model-based Reasoning in STEM Education will give students an opportunity to engage in novel research projects in this exciting and important field.

Discipline-Based Education Research (DBER) combines disciplinary expertise in a STEM field with education research methodology that undergraduate students can do, if provided with preparatory work and mentoring. This DBER REU program will enable STEM students to apply their growing disciplinary knowledge to important problems in education research. Over the next three years, the program will select 30 diverse undergraduate students to join the RIT STEM research community. During the program, students will engage in rigorous education research projects with the support and collaboration of research mentors. The program will help students prepare for DBER and/or scientific research careers and graduate programs. These potential future educators will be introduced to teaching, learning, and assessment of the core scientific practice of modeling. Students in this program will disseminate their findings at conferences and through scholarly publications. To support program objectives, this DBER REU program has four core components: Mentored Research projects, Professional Development Workshops, DBER Methods Workshops, and Cohort-building Activities. The project will contribute to research around the development and assessment of students' abilities in modeling, which is essential for the efficacy of educational initiatives.